Small Grants for Exploratory Research: Synthesis of Design For (X) Methodologies

The development of design methodologies have generally been associated with specific aspects of engineering design -- also known as DF (X) methodologies -- where DF (X) represents Design For (x) and the X represents functions such as assembly, manufacturing, quality, and even disassembly. This project is directed at the development of a generalized definition of DF (X) principles and methodologies. It will also be an investigation of the relational mapping of generalized principles and methodologies to problem specific principles and methodologies. The operational tool is a relational data base linking DF (X) applications and a general definition of this concept. This effort will assist in assessing if an effective translation exists between abstract concepts of design and the application of design methodologies.